Imaging Brain Activity During Adaptation to Stress in New World Monkeys

These studies will utilize functional magnetic resonance imaging (fMRI) to
examine the changes in brain activity that accompany adaptation to stress.
There is little known about the changes in brain activity associated with
adaptation to acute stress even though the neurochemical and hormonal
adaptations to stress are well known. Two closely related species, the
cotton-top tamarin and the common marmoset which have many biological and
behavioral similarities but have very distinct temperaments will be studied.
The marmoset is calmer and less anxious while the tamarin is extremely
excitable and prone to stress-related diseases like colitis and colon
cancer. Male marmosets and tamarins will be fitted into a custom designed
head and body restrainer and imaged while fully conscious inside the MRI
device for one hour each day over several consecutive days. Their brain
activity as measured by small magnetic shifts associated with changes in
blood flow to areas of increased neuronal activity will be compared and
correlated with saliva concentration of a stress hormones as they adapt to
the stress of repeated immobilization.

These studies will provide a global perspective on the neural networks in
the brain which are involved in the adaptation to repeated acute stress in
non-human primates with different temperaments. With the advent of
noninvasive fMRI in awake animals, it is now possible to follow the same
animal over several stressful events and map the global changes in brain
activity accompanying adaptation.